Project Geoinformatic Surveillance: Hotspot Detection and Prioritization Across Geographic Regions and Networks for Digital Government in the 21st Century

GeoInformatic surveillance data combined with the right statistical interpretation can enable detection of anomalies, or hot spots, either geographically, over time, or both. The need may be for monitoring, etiology, management, or early warning on topics that are natural, accidental or natural. Many government applications can benefit from such detection, such as carbon budgets, ecosystem health, crop pathogens, invasive species, and public health. This multi-disciplinary grant will develop a prototype system and tool set in collaboration with several Federal agencies using a statistical method known as upper level set scan statistic. The prioritization scheme will be based on multiple criteria using revealing Hasse diagrams and partially ordered sets.